Technology-Based Curricula for Mathematics and Science

This curriculum development project proposal comes from a partnership comprising the Rocheste City School District, Eastman Kodak Company, Edunetics Corporation, and the University of Rochester. Envisioned is a curriculum, assisted by a totally integrated computer-based delivery system that includes the following features: (a) current, comprehensive information in each discipline which can be readily updated electronically; (b) current practical applications of key concepts from basic science and mathematics; (c) flexible sequencing of content matter, with coordinated activities and hands-on materials; (d) remedial and accelerated stands within the instructional program. All major components will be field tested in both urban and suburban locations throughout the United States. The Foundation's support for this 3-year project represents approximately 40% of total project costs.